2007 Oceanographic Instrumentation for the RV Atlantic Explorer

Bates
This award to Bermuda Institute of Ocean Sciences (formerly Biological Station for Research) provides support for the acquisition of oceanographic instrumentation to be used on R/V Atlantic Explorer, a research ship operated as part of the University-National Oceanographic Laboratory System (UNOLS) fleet. Specifically, support is recommended to acquire a set of 24 water sampling bottles (Niskin bottles) to be used with their CTD system, as well as a Ku-band communication system, providing 7x24 Internet connectivity between the vessel and shore for science communications. These shared-use instrument acquisitions improve the capabilities of the research vessel, and are expected to be used by most researchers using the BIOS vessel in their research during 2007 and future years.